Performance Prediction of Applications/Distributed Systems Pairs

This research involves a theoretical and experimental study of the problem of allocating certain applications to a distributed system environment in order to exploit application and system parallelism for maximum computational speed up to the application. The applications considered are related to real-time applications (flight simulator) and the solution of partial differential equations. The distributed system architectures considered can be classified according to their interconnecting network as: multiprocessor systems with shared bus configurations; Processing Element to Processing Element configurations; and Processing Element to Memory configurations. The proposed solution approach to the optimal allocation problem involves the modeling of the application and the distributed system, and the mapping between the application and the system. The objective of this investigation is the development of a design tool that may be used to predict the performance of application/distributed system pairs.